Precollege Outreach in GLOBECOM 2005

The University of Missouri-Rolla has received a Special Projects award to create opportunities for secondary school teachers and students to interact with technical professionals and college students through the GLOBECOM 2005 conference. Many pre-college students lose interest and motivation for science, mathematics, and technology and do not fully consider careers in these fields. Interaction with technical professionals and students will be provided for pre-college students, especially those who do not have role models in technical fields. The GLOBECOM 2005 conference has a significant undergraduate student component that will facilitate pre-college involvement.